Control of Embryonic Polarity and Translation in C. elegans

9982944
Evans

In many animal species, polarized cells divide to generate daughter cells
that differ in developmental potential. The mechanisms involved are largely
unknown. In C. elegans embryos, polarized cell division causes key mRNAs to
be translated in localized domains, which in turn creates differences
between early blastomeres. The translation of glp-1 mRNA is restricted to
anterior cells by regulatory elements in its 3' untranslated region (3'
UTR). GLP-1 protein is a conserved membrane receptor that is required for
anterior development. The central hypothesis is that glp-1 mRNA is
controlled by a regulatory system that is connected to asymmetric cell
division and contributes to embryonic polarity. For this project, the
following questions will be addressed. (1) What are the gene products that
restrict the translation of glp-1 mRNA to anterior cells of the embryo? A
novel functional screen will be used to clone new genes that control GLP-1
localization and early polarity. (2)What are the roles of these gene
products in the control of translation and polarity? Mutations in these
genes will be used to examine their function in early embryogenesis.
Antibody and mRNA probes will be used to examine the pathways that lead to
localized expression of cell fate regulators in the embryo. RNA binding
assays will be used to determine if new proteins control, or are components,
of factors that bind to the glp-1 3' UTR and regulate translation. These
experiments will lead to the discovery of the molecular networks that
connect cell polarity and cell division to the control of mRNA translation.
Because the few known components are conserved between nematodes and
mammals, this project will likely uncover fundamental mechanisms of mRNA
regulation and cell specification, processes that are critical to human
development and health. In addition, this work may lead to novel strategies
to control the expression of genes that influence human disease. Finally,
this work could also lead to new ways of controlling nematode parasites
harmful to agriculture or human health.